Fast Flow of Antarctic Ice Streams - Bed Deformation or Basal Sliding? Borehole Study of Ice Streams B and C

This award is for support for a program of borehole studies to resolve fundamental questions about the mechanisms responsible for the rapid movement (~1 m per day) of the West Antarctic ice stream. Basal "lubrication" by deformation of soft glacial till underlying the ice is often given as the mechanism responsible for this rapid movement, however, efforts to observe this bed deformation directly by measurements in boreholes drilled to the bed have not given a definite indication of it. Borehole observations have shown that soft subglacial till is present and that physical conditions favor either till-deformation or basal-sliding as the rapid-flow mechanism. Improved borehole techniques for measuring separately the basal-sliding component of ice movement and the bed-deformation component will be developed and should help to provide insight into what controls ice stream motion.